CAUSEweb: A Digital Library of Undergraduate Statistics Education

This Collections project provides peer reviewed high-quality resources to support the community of undergraduate statistics teachers. Organizational leadership for the effort rests with the Consortium for the Advancement of Undergraduate Statistics Education (CAUSE), involving thirty diverse institutions and a large diverse group of reviewers and associate editors. Emphasis is placed on resources that have been shown through evidence-based research to improve student learning. CAUSEweb is collaborating with MERLOT (Multimedia Educational Resource for Learning and Online Teaching) to develop a consistent and informative review process and with the Eisenhower National Clearinghouse to develop federated searching capabilities and other bridges to the full set of NSDL projects.